Mathematical Sciences: Problems in Operator Theory

Professor Clancey will investigate problems in operator theory and function theory related to representations of the algebra of rational functions on finitely connected planar domains. Part of this research involves determining the explicit connections between various finite-dimensional operator algebra models for such representations. Function theory on the model spaces will also be studied. In particular, explicit descriptions involving Riemann theta functions will be sought for the reproducing kernels associated with the model spaces. Applications of this information to the the study of Toeplitz operators on the Hardy spaces of multiply connected domains will be pursued. The research envisioned here is about analytic functions, a central preoccupation of mathematics for well over a century. These are functions of a complex (as opposed to real) variable, so they live in the plane rather than on the line. They can be defined variously as solutions of a certain simple system of partial differential equations, as maps which take planar regions to other planar regions in a way that preserves angles except at isolated singularities, or (locally) as limits of polynomials in a suitably precise sense. Analytic functions have the following remarkable property: given an arc in a connected open set on which the function is defined, the values of the function everywhere in that set are completely determined by the values just on the arc. Professor Clancey's project is to track down as explicitly as possible some particular consequences and ramifications of this intriguing state of affairs.